Collaborative Research: I/UCRC: Safety Security Rescue Research Center (SSR-RC)

This multi-university Industry/University Cooperative Research Center for Safety, Security and Rescue Research located at the University of South Florida and the University of Minnesota will bring together industry, academe, and public sector users together to provide integrative robotics and artificial intelligence solutions in robotics for activities conducted by the police, FBI, FEMA, firefighting, transportation safety, and emergency response to mass casuality-related activities. The need for safety, security, and rescue technologies has accelerated in the aftermath of 9/11 and a new research community is forming, as witnessed by the first IEEE Workshop on Safety, Security and Rescue Robotics in February 2003.

The Center will be built upon the knowledge and expertise of multi-disciplinary researchers in computer science, engineering, industrial organization, psychology, public health, and marine sciences at the University of South Florida (the lead institution) and the University of Minnesota.